Workshop Support: GeoFrame Walker Lane

Workshop Support: GeoFrame Walker Lane
Principal Investigator:
Daniel Stockli, University of Kansas, Lawrence
GeoFrame is an integrative geologic initiative that takes a multi-dimensional view of the
building and modification of the North American continent through time and space. The
initiative's goals can be achieved by systematic integration of geologic and geochronometric
investigations and the results from unprecedented geophysical imaging as part of the EarthScope
Program. The overarching EarthScope geophysical experiment has the potential to be a
transformative program for the Earth Sciences, building a foundation for a more complete
geodynamic understanding of the evolution of the North American continent. GeoFrame has
outlined seven focus regions across the conterminous U.S., specifically to address fundamental
aspects of the growth and modification (e.g., rifting) of the North American continent through
time. The GeoFrame effort envisions these focus site investigations to entail map-scale arrays of
passive source seismic receivers and associated active source seismic studies and complementary
geophysics in conjunction with geologic-based synthesis and targeted studies. Study of these
regions should proceed in an intensified fashion, in concert with planned USArray steps.
One of these focus sites is the Walker Lane region in eastern California and western
Nevada. We propose to organize a two-day workshop that will bring together a wide spectrum of
geologists and geophysicists who are working in the Walker Lane. This GeoFrame focus site
workshop is particularly timely given the deployment schedule of the USArray "BigFoot" array.
This workshop is intended to facilitate the organization of an integrated geophysical and
geological approach to understanding the geodynamic evolution of the Walker Lane.

Implicit in the design and implementation of EarthScope is the recognition that progress on
issues such as these requires the collaborative efforts of researchers working in complementary
disciplines. This workshop is designed to build a broad-based community of researchers focused
on integrative geophysical and geological investigation of the Walker Lane. As such, it will open
new avenues of collaboration between working groups and identify new research needs and
opportunities. We anticipate the integration of results and efforts with the NSF Margins
Rupturing of Continental Lithosphere (RCL) initiative in the Gulf of California by continuing the
work onshore from the Gulf of California to the north into Nevada.